Electrodeposition Leading to Immobilized Enzyme Biosensor Electrodes

This Small Business Innovation Research (SBIR) Phase I project is in the general area of analytical and surface chemistry and in the subfield of biosensors. The thrust of this experimental activity is to evaluate a new, electrodeposition-based method for the production of enzyme biosensor electrodes. The objective of this research is to electrodeposit colloidal gold containing a test enzyme on carbon rods, and other inexpensive conducting materials, in a manner that maintains biological activity of the enzyme while providing for facile electron transfer. The research tasks consist of (1) immobilization of the test enzyme on colloidal gold particles by each of two methods (adsorption directly on the surface and covalent attachment via a spacer arm); (2) production of electrodes from the colloidal gold containing the attached test enzyme by an electrodeposition method; (3) measuring the activity of the immobilized enzyme; and (4) coupling the electron transfer characteristics of the immobilized test enzyme to the electroactive gold surface. The results of this research should demonstrate the feasibility of electrodeposition as a viable method for the production of bioelectrodes. Electrochemical sensors based on enzyme specificity have broad potential in medical diagnostics, environmental monitoring, and process control. Major problems in current commercial biosensor design arise because of instability, slow response, and lack of direct, efficient electrical coupling between the enzyme and the electrode surface. The successful completion of this Phase I SBIR project could lead to new and efficient technologies for the production of multi-analyte sensors with desirable characteristics.